Group International Travel for U.S. Participants in Foreign Astronomical Meetings

9404741 Boyce Partial funding will be made available to US astronomers to travel to scientific meetings abroad. The program will be administered through the American Astronomical Society. Thirty to forty-five travel grants will be made per year. ***